Environmental and Stochastic Aspects of Creep Crack Growth

A new Materials Research Group is established to investigate the chemical and michromechanical processes that control crack growth at elevated temperatures, and to quantify the stochastic aspects of the crack growth response. The goal of the investigation is to provide fundamental scientific understanding of the microstructural mechanisms for growth of cracks at elevated temperatures. Polycrystalline nickel-iron-chromium ternary alloys with varying carbon content are being used for the experimental studies. The role of grain boundary carbide or carbon concentration, as well as grain boundary orientation and structure upon cavitation segregation and crack growth kinetics are being determined. The specimens are being grown by vacuum melting, forging, rolling of single heats of each alloy. Bicrystals of the same alloys are being grown by a modified Bridgeman method for the purpose of producing high angle grain boundaries of known orientation. Materials characterization is being accomplished using analytical transmission electron microscopy, Auger electron spectroscopy, x-ray microprobe analysis, Laue back-reflection x-ray, and optical microscopy. Mechanical testing includes constant-load, tensile creep tests in vacuum or high purity argon on polycrystalline and bicrystalline specimens as a function of stress and environment (e.g., temperature, hydrogen, water vapor, methane, and oxygen). The steady-state creep deformation is being modeled as a function of stress, strain, and temperature. The models are addressing the mechanistic aspects of deformation (e.g., dislocation glide vs. climb, grain boundary sliding vs climb). The kinetics of chemical reactions and transport processes are being determined their effects upon the enhancement of cavitation and creep crack growth in these alloys. The micromechanical model is being integrated with the chemically-based model to form a predictive model for environmentally-assisted creep crack growth. In addition to the deterministic model, stochastic modeling of the factors that are probabilistic in nature are being incorporated to formulate a comprehensive model. Factors being considered in the probabilistic portions are cavity spacing, cavity growth rate, sintering and coalescence of cavities, grain boundary orientation, distribution of carbide precipitates.